Fiber Optics and a Sophisticated Spectrometer in an Under- graduate Physics Program

Susquehanna University will purchase a fiber optics kits and components for the construction of an optical spectrometer. This equipment will be used to improve instruction in the upper division physical measurements laboratory. The spectrometer will be specially designed for teaching spectroscopy. Students will use the fiber optics equipment to gain a basic understanding of this new technology, while the optical spectrometer will be used to instruct students in the basic principles underlying this widely used type of instrument. Susquehanna University will match the NSF grant with an equal amount of funds.